Genetic Analysis of a Virulence and Hypersensitivity Controlling Region of Pseudomonas Syringae pv. Phaseolicola

Pathogenicity genes of Pseudomonas syringae pv. phaseolicola have been identified, cloned and partially characterized. They are located in ca. 20 kb region. At least some loci in this region control the interaction of this bacterium with non-host plants as well. DNA sequences from this region are conserved and interchangeable among several pathovars of the "syringae" group of the fluorescent phytopathogenic Pseudomonas. Expression of two regions in the 20 kb segment is activated upon inoculation of the bacteria onto plants. We propose to characterize these regions in detail, identify other regions that may be plant-induced and determine the nature of the plant factors that mediate the activation process.